Conference & Proceedings: "Crafting and Evaluating Interactive Educational Websites," Cornell Laboratory of Ornithology, Cornell University, Ithaca, New York, Spring, 2005

The "Crafting & Evaluating Interactive Educational Websites" conference will be developed through a collaboration between the Cornell University Laboratory of Ornithology and the Exploratorium. The PIs will develop and host a three-day invitational conference focusing on the practice of interactive web site design, development, evaluation and maintenance intended to achieve or support informal STEM learning. The conference, which will be held in Spring, 2005, will involve 50 individuals with a wide range of expertise who will focus on a variety of issues including audience expectations and abilities, designing for learner outcomes, testing for usability, evaluation tools and accessibility.

With regard to intellectual merit, conference attendees will explore challenges and barriers that hinder development of truly interactive web sites and identify best practices and promising models, tools and technologies for encouraging authentic public interaction. Conversations begun at the conference will be extended to a broader audience through development of an online manual, informed by the conference presentations and commentaries, and designed for use by the museum, media and research communities. An interactive Web site developed after the conference will allow Web developers to locate content and ideas for design, and to share new ideas and results of usability studies and evaluations.